Integrated Sensing: ScalableSensorSim - A Simulation Environment for Large-Scale Sensor Networks

In this project, we will extend and advance the state--of--the--art
in the field of sensor network research in two important ways.
First, we will design, implement, and distribute a simulation environment
designed specifically for sensor networks of hundreds of thousands of
network elements. The basic simulator will be designed from the beginning
with scalability in mind, and will use distributed simulation methods
to increase the available memory and CPU power that and be utilized
to conduct the simulation experiments.

Secondly, we will design and demonstrate a set of protocols designed
specifically for data dissemination in a very large--scale sensor
network environment. These protocols will be power and bandwidth aware,
allowing a maximization of data throughput while at the same time
extending the overall life of the network by limiting energy costs
at individual network elements. The protocols will be designed to
support a hierarchical view of the network, and will support primitives
for data aggregation methods and selective attention of high--priority
measurements.

Our simulation environment will be freely available to all
researchers working on large--scale wireless networks, and will foster
increased attention to network performance as the network scales to
tens or hundreds of thousands of elements.
Our power and bandwidth aware protocols
will encourage deployment of inexpensive environmental sensing devices
that interact in a cooperative manner to insure sensor data is reliably
delivered to the end--user on a timely basis.